Conference Proceedings: "Meeting New Challenges in Educating Engineers"

This conference, held in conjunction with the Association of Independent Technological Universities during the Spring of 1991, is to determine the future needs in undergraduate engineering education within the framework of what is needed, feasible, and available for immediate implementation. Innovative modifications -- even major changes -- are critical for engineering education, not only for the U.S. to be competitive in the global sense but also to recapture U.S. industrial leadership. The grantee provides funds for this project that are more an equal match for the NSF award.//